Support for 18th SIGART/AAAI Doctoral Consortium

This grant provides travel support for selected students attending the 8th SIGART/AAAI Doctoral Consortium. AAAI (Association for the Advancement of Artificial Intelligence) is the major professional association for AI. At the Doctoral Consortium (DC), PhD students who are pursuing work on AI-related topics present their proposed research and receive feedback from a panel of established researchers, as well as from other student participants. This provides the students with invaluable exposure to outside perspectives on their work at a critical time in their research, and also enables them to explore their career objectives.